Targeted Infusion Project: Spelman Skills & Habits for Aspiring Physicists & Engineers (SHAPE) Program

The Historically Black Colleges and Universities Undergraduate Program (HBCU-UP) through Targeted Infusion Projects supports the development, implementation, and study of evidence-based, innovative models and approaches for improving the preparation and success of HBCU undergraduate students so that they may pursue science, technology, engineering, or mathematics (STEM) graduate programs and/or careers. The Spelman Skills & Habits for Aspiring Physicists & Engineers (SHAPE) project creates a summer bridge program providing exposure to tools, and content that will help physics students succeed in their first academic year. A combination of asynchronous and in-person activities in the summer are supplemented by academic year meetings designed to maintain the summer cohort and highlight career choices. Working with college-level career guidance and community support efforts, the project will give students confidence to include being a physicist or engineer to their identity and resist imposter syndrome. Researchers will investigate the effects of these efforts on shifts in student identity, attitude, and self-efficacy through survey and interview data.

The main objectives of the SHAPE Program are to: 1) increase the number of African American females pursuing and obtaining a degree in Physics and/or Engineering at Spelman College by addressing STEM/Math readiness and inclusivity, 2) demonstrate careers in Physics and Engineering by providing access to practicing physicists, engineers, and alumna, and 3) cultivate counterspaces and a Community of Practice (CoP) to create positive changes in student attitudes toward science and identities in physics, as evidenced in surveys, like the Colorado Learning Attitudes about Science Survey (C-LASS), and semi-structured interviews. Participants will be invited to virtual and in-person activities designed by physics faculty members that will focus on scientific thinking and physics course content. A mixed-methods approach will provide survey, interview, assignment, and participation data to better understand what aspects of the SHAPE project benefit participant participants academically while affirming their role as a scientist. The results of this project will also lead to ways that other institutions can foster counterspaces for historically marginalized students.